Mathematical Sciences: Bifurcation and Symmetry

Bifurcations in differential equations with symmetry will be studied from a theoretical and applied standpoint. In this context the term "bifurcation" refers to a radical change in the solution set of an equation as parameters in the equation pass through certain critical values. A particular system under consideration is a model of Conette-Taylor flow in which fluid systems with symmetries other than rotational are also studied.